Development of an Improved Detector for Krypton-81 and otherNoble Gas Isotopes.

This project will test the configuration of an improved isotope detector system for measuring trace levels of noble gas atoms such as krypton in samples where isotopic analyses can be used for age dating and other environmental and medical applications. The new detector system to be tested is novel because it captures the trace atoms by implanting them in silicon or germanium targets and then releases them by means of laser annealing for subsequent mass spectrometry. The tests will determine if non.selective ionization during the laser annealing process can interfere with the mass spectrometry measurements. If this Phase I project in the Small Business Innovation Research program is successful, a krypton counting system can be configured in Phase II and would have applications in areas of research such as polar ice cap dating, groundwater transport and solar neutrino experiments.